CAREER: Evolution of Diets and Landscapes in Tropical Ecosystems

Over millions of years, dietary pressures have been one of the most powerful engines of change in life on Earth, driving organisms to develop new traits, occupy new ecological roles, and diversify into the variety of life seen today. Understanding how herbivory (animals eating plants) evolved, and what its long-term consequences have been for ecosystems, is challenging because direct evidence of ancient diets rarely survives in the rock record. This project combines the development of new chemical methods for detecting evidence of diets preserved in the tissues of living organisms with fossil plant material to reconstruct how the Amazon rainforest responded to past climate extremes. These investigations and proxy developments will advance the capacity to interpret biogeochemical signals across time, scale, and taxa, and open new frontiers in biotechnology. An integrated education component will engage undergraduate students in field and laboratory research, training the next generation of scientists at the intersection of paleoecology, geochemistry, and Earth history.

This project develops and applies isotope analysis of amino acids to detect dietary signals in biological tissues, with a focus on the nitrogen isotopic composition of the amino acid threonine as a novel biosignature of herbivory. No modern baseline exists for this isotopic system in herbivorous insects. The project will establish a baseline by analyzing species spanning a range of feeding specializations, testing hypotheses about the mechanisms linking threonine isotopic fractionation to herbivorous diet, and the metabolic routing of dietary nitrogen. In parallel, the project reconstructs Amazonian vegetation dynamics during a Pleistocene glacial cycle using a multi-proxy approach integrating stable isotope geochemistry, macrofossil anatomy, taxonomic composition of fossil leaves and mummified wood, palynology, and sediment records. Together, these aims address how dietary adaptation drives evolutionary diversification and how climate extremes alter plant community composition and energy flow in megadiverse ecosystems.